On the Kaehler-Ricci Flow and Related Problems

ABSTRACT DMS - 0206847.

Abstract of the Project

This project is centered around the study of the Ricci flow on complete,
non-compact Kaehler manifolds of nonnegative holomorphic bisectional
curvature. The main goal is to seek a complete understanding of singular
behavior of the maximal solutions to the Kaehler-Ricci flow with
nonnegative curvature, in particular the geometry, such as the rates of
curvature decay and volume growth of geodesic balls, of complete Kaehler-Ricci solitons,
which turn out to be the models for Type II singularities and can be considered as a
natural extension of Calabi-Yau metrics on non-compact complex
manifolds. Progress on the project will lead to new understanding of geometry, analysis,
and complex structure and could have important application to solving a
well-known conjecture in complex geometry. The research will be based
on the effort of extending the dimension reduction method of Hamilton
for the Ricci flow in the Riemannian case to the Kaehler case where one
has weaker curvature assumption.

The proposed project deals with singular behavior of the Kaehler-Ricci
flow, or Parabolic-Einstein equations, and studies uniformization type
problems for complete Kaehler manifolds. The Kaehler-Ricci flow is an
important type of geometric evolution equations, which have profound
importance and applications in science and geometry. Some of the examples include
the motion of a surface by its mean curvature, the flow of gas in a porous mechanism,
the motion of a liquid crystal, the diffusion of oil in shale, the
reproduction of sparse species, and image sharpening. The knowledge
gained in this project would not only have significant implications to
our understanding of complex geometry which in turn could be very useful
to the study of mathematical physics, but also may lead to new
understanding of singularity formations in other geometric evolutions.

------------------------------------------------------------------------